Flow Problems in Material Processing and Hydraulic Fracture

This work focuses on the mechanics of roto-molding. Rotomolding is an industrial forming process which has been applied mostly to thermoplastic materials but holds considerable promise for thermosetting plastics. In the latter case, very little experience exists. The purpose of the present focus of research is to model this process. The goal is a rational basis for establishing optimum parameters for the rapid and efficient molding of a variety of complex shapes.